SBIR Phase I: Enabling Robust Binary Code AI via Novel Disassembly

The broader impact of this Small Business Innovation Research (SBIR) Phase I project is to enable novel binary code AI applications for cybersecurity, by providing a fast and accurate method to reverse-engineer executable code. Current solutions are slow and inaccurate, and the volume of code analyzed by cybersecurity applications is huge. Cybersecurity companies either deploy tremendous computing resources to handle huge volumes of code or only extract superficial features from code for AI models, making those solutions extremely vulnerable to adversarial attacks. The proposed solution will not only save computing resources but will allow for improved solutions by extracting complex features from executable code and applying more advanced AI models.

This Small Business Innovation Research (SBIR) Phase I project provides an innovative disassembly solution for binary code. The lack of a fast and accurate disassembler has become an obstacle to the applications of novel AI approaches in the cybersecurity industry. The proposed solution combines state-of-the-art binary analysis techniques and newly emerging deep learning techniques to build a fast and accurate disassembler. The proposed solution utilizes GPU technology to accelerate the disassembly process. The final disassembly is expected to be over 100 times faster than state-of-the-art disassemblers, while achieving the same or better accuracy.